Undergraduate Research in Biology

This award provides funds to the Department of Biological Sciences at the University of Tulsa to continue a successful REU SITE. The program will help train undergraduate students in the philosophy, mechanics, and execution of scientific research. This project will enhance an already strong program in undergraduate research participation, and will extend this program into the summer. Another goal is to enhance opportunities for participation in scientific research for members of underrepresented groups. The Undergraduate Summer Research Program will consist of a research workshop, independent research projects, weekly group meetings, invited speakers, and a research colloquium. The research workshop will introduce the students to the philosophy and mechanics of the various fields in biology represented by the participating faculty. One result of the workshop will be the development by each student of an individual research project. These projects will focus on nectivore foraging ecology, reproductive behavioral ecology, vertebrate reproductive physiology (ecology & evolution), algal evolution & systematics, or cyanobacterial microbiology. The students will complete their projects over the course of the summer. The weekly group meetings will provide a forum for review of literature, progress reports on research projects, and for solving problems that arise during the course of the projects. The invited speakers will expose the students to a wider variety of view points in biology than is available through the participating faculty. Finally, students will communicate the results of their projects and experience critical peer review through the research colloquium.